Presidential Awards for Excellence in Science, Mathematics and Engineering Mentoring.

Dr. Warner received his PH.D. in Analytical Chemistry from the University of Washington in 1977. At present he is chair of the Chemistry Department at Louisiana State University. According to the documentation, he has been an exemplary role model for both students and peers. This is supported by the fact that he was nominated by colleagues in the chemistry department from another institution. Highlights of Dr. Warner s accomplishments in mentoring include: A thorough understanding of the steps needed to keep disenfranchised students involved in science, leading them to successful careers. Impressive letters from students concerning his mentoring activities. Impressive research credentials as a scientist. Innovative efforts to encourage minorities in the pursuit of scientific degrees and careers. Has received numerous awards for excellence in teaching and engineering.